High Energy Neutrino Interactions (Physics)

This action would provide funds for two investigators and a graduate student to continue their research in elementary particle physics. They, together with collaborators from other institutions in the United States and abroad, are performing an experiment with the 15 foot bubble chamber at Fermilab. They will study the interactions of neutrinos in the bubble chamber. The group from Illinois Institute of Technology is responsible for replay system for the holographic photography. With holography very short lived particles can be tagged efficiently. The bubble chamber (E632 at Fermilab) is scheduled to operate for about six months beginning June 1987 and expected to accumulate a sample of about 45,000 events. The objectives are: 1) to search for rare phenomena; 2) to study like-spin dimuon production; 3 to study gluon and quark fragmentation functions and structure functions; and 4) to study coherent single pion and rho production and apply the results to coherent production of heavy flavor mesons.